Fostering Diversity in Biostatistics

This project is the PI's transition from a traditional biostatistical research career in clinical trials,
toxicology and environmental health to statistical methods for community based research, with an emphasis on sociology and behavioral science. The desire for this transition has arisen from the PIs involvement in
several initiatives designed to foster diversity in the Biostatistics Department at the Harvard School of Public Health (HSPH).

Three types of activities are proposed:

Publication of a series of articles on diversity.

Development of working collaborations with social and behavioral scientists at the Harvard School of Public Health, with a view to generating stable funding sources to support the future efforts of Biostatistics faculty
and students in these areas.

Development of new statisticalmethods for community based research. Specific topics to be addressed include spatial analysis of time to event data, missing data problems especially in spatial data analysis settings, measurement error and missing data problems in multilevel modeling.

Although the PI is an established and relatively senior researcher with a good track record as a statistical
methodologist, the proposal meets the POWRE guidelines in two ways:

It will support the PI during a critical time in her career while she makes a transition in her research interests, learns a new area and establishes collaborations that can provide sustainable long-term funding in this new area.

It involves innovative ideas for integrating research and education, specifically for underrepresented minority students.

This POWRE project is jointly supported by the MPS Office of Multidisciplinary Activities (OMA) and the Division of Mathematical Sciences (DMS).